Proof of Concept in Pressure Correlation Measurement in Turbulent Flows (Expedited Award for Novel Research)

The transport of stress and scalar quantities in turbulent premixed flames is difficult to predict because of the interaction between spatial and temporal fluctuations of the controlling parameters. Modeling the dynamics requires elimination of troublesome terms in the equation of motion. One set of elusive parameter involves pressure- velocity fluctuations. The research will focus on a technique to measure these fluctuations in isothermal flows by substituting nonintrusive laser methods (multiple-beam, laser-doppler anemometry and Rayleigh scattering) for intrusive mechanical microphone probes. The pressure fluctuations will not be measured directly but will be calculated from the volume integration of the density-velocity gradients. The proposed research deals with pressure fluctuation measurements in an isothermal jet. Quantitative results which are repeatable and of high accuracy will lead to similar measurements in reacting jets, will further our understanding of turbulence, and will increase the scientific basis for combustion modeling.